EAGER: Multimodal Corpus for Vision-Based Meeting Analysis

This project explores a multimodal corpus for vision-based meeting analysis. The research team is working on: (1) extracting the data from tapes and organizing them into multimedia databases; (2) developing a database visualization and analysis tool to support model development; and (3) developing an agent-based algorithm to extract hand and head tracking information so that higher level models may be built onto the data.

The project provides datasets that are organized into a usable corpus with many unique properties, such as the ground truth at the psycholinguistic/psycho-social level of the social roles status, purpose of each meeting, and at the video level in the form of motion tracking data collected co-temporally with the video, for developing and testing new algorithms. The developed tools improve the access to the multimedia database of multi-view group human behavior. The agent-based approach provides a novel way in video annotation. The developed tools and algorithms from this project can be applied to many other applications. For example, the tools may be applied to analyze classroom behavior and in learning scenarios. The project provides research opportunities for undergraduate and graduate students including women and individuals from underrepresented populations. The project outreaches to the user communities through publications, presentations, web presence, and broader collaborative interactions.